Explaining Local Implementation of Earthquake Mitigation in California

The objective of the research are: (1) to determine if it is possible and feasible to test hypotheses about seismic mitigation at the local level that have been suggested in various case studies; and (2) to describe any differences before and after the Loma Prieta earthquake in the implementation of non- structural hazard mitigation. The unit of analysis is the local jurisdiction (i.e., cities and counties). The universe is all jurisdictions in Seismic Zone 4 in the state of California. Quantitative data will be gathered from a stratified random sample of jurisdictions. The first objective will involve an attempt to specify and test a model explaining various stages of completion of a program for identifying and reducing the hazardousness of pre-1934 unreinforced masonry buildings (URMs). The model will be tested using logistic regression analysis. The second objective will involve comparisons of organizational characteristics of building departments in the sample of jurisdictions for Fiscal Years 1989 and 1990 (i.e., the year prior to and the year following the October 4, 1989 Loma Prieta earthquake). Results should help to assess the prospects for developing an empirically-verified knowledge base in the area of hazard mitigation upon which public policy may comfortably rest.